Gordon Research Conference on Correlated Electron Systems; U of New England; New Biddeford, Maine

This award provides partial support for the Gordon Research Conference
on Correlated Electron Systems. This biennial meeting focuses on the
novel properties of materials and artificial structures which result
from strong interactions between electrons. The topics cover some of
the most intellectually vibrant areas of condensed matter physics
research, as well as those which hold the most promise for
revolutionary rather than incremental technological applications. The
meeting brings together speakers, who are world-leading experts in
their areas, with a diverse group of other attendees containing a
large number of graduate students and postdoctoral scientists,
representing the future of the field. The Gordon Research Conference
format provides an extremely interactive venue in which young
researcher and experts can discuss extensively, forge contacts and
research relationships, and initiate new projects and collaborations.
The NSF funds will be used predominantly to support US students,
postdocs and junior faculty who would not otherwise be able to attend
the conference.